Integration of HPLC and GC-MS into Restructured Undergraduate Organic Chemistry Laboratory

9452350 Fried Research-based discovery science generates enormous enthusiasm among undergraduates. The organic chemistry laboratory sequence is being remodeled to take this fact into account. This course is populated primarily by biology majors and chemistry majors. Students are working individually, but sharing their results within a group of eight students. The research projects for this lab sequence include the isolation and identification of secondary plant metabolites, a study of the Claisen-Schmitt formation of chalcones, and an investigation of substitution reactions. These experiments were chosen in consultation with the biology department in order to emphasize the important of chemistry to the study of biology. The students working on these projects are using instrumentation presently available in the department as well as a GC-MS and an HPLC. Both of these instruments are greatly enhancing the students' laboratory experience. In order to provide further connections between biology and chemistry, both instruments are also being used in the plant biology courses.